Lineage Analysis of Zebrafish Neurodevelopment

The goal of this study is to learn the role that cell lineage plays in specifying the development of the nervous system of a vertebrate. Dr. Kimmel proposes to determine neuronal cell lineages directly by filling single progenitor cells present in early embryos of the zebrafish with a fluorescent lineage tracer dye. With the aid of an image intensifying video camera, he will watch the subsequent development of the marked cell and its clonal progeny. Dr. Kimmel will keep track of the sequence of divisions and of the movements of individual cells in the clone during the period of gastrulation and subsequent formation of the nervous system, until the time that cells stop dividing and begin growing axons. At that stage specific types of neurons can be recognized. To do this study, Dr. Kimmel will take advantage of the small size, optical clarity, and rapid development of the zebrafish embryo. The principal investigator has described individually identifiable neurons that begin to differentiate during the first day following fertilization, and the primary objective of this project is to learn the cell lineages that generate these cells. Dr. Kimmel has a solid reputation for careful analysis of the development of zebrafish, and this research will substantially increase our understanding of the role of cell lineage in specification of cell type in the nervous system.